Mathematics and Computer Science for the 21st Century

Lake Forest College seeks funds for a two and one-half-year program to develop 40 mathematics/computer science leader-teachers in high schools across the nation. The program will consist of two six-week summer institutes of intensive course work in mathematics, computer science, pedagogy and leadership training; team classroom projects which will serve as models for inservice programs; and follow-up activities during the intervening school year which include a two-day miniconference, telecommunication among staff and participants, and classroom visitations. Participants will have strong backgrounds in mathematics and computer science and may earn 18 hours of graduate credit. The three senior staff from Lake Forest have good backgrounds in mathematics, mathematics education, and computer science. Three Presidential Award winning high school teachers will act as role models and mentors. Visiting consultants in mathematics education will complete the staff. Mathematics topics will include real analysis and chaos; discrete mathematics and combinatorics; and linear programming. Computer science topics will include data structures in Pascal; and language, automata and theory of computation. It is expected that about 400 second-wave teachers will participate in inservice activities conducted by the first-wave participants. Lake Forest College's cost- sharing accounts for 9% of the NSF budget. The student of the 21st Century will need a proficiency in both computer science and mathematics and must be able to use the one to enhance the other. This program will train 40 lead-teachers nationally with a proficiency in both computer science and mathematics, capable of teaching such students and of enhancing other teachers.